Noncommutative Algebra

Homological methods are used more and more in many areas. Recent
developments connected with triangulated (derived) categories
have enormous impacts to commutative algebra, algebraic geometry
and noncommutative algebra. These lead us to search for new
homological-combinatorial structures of algebraic and geometric
objects. Some new theories discovered in the noncommutative setting
have unexpected applications to commutative algebra and algebraic
geometry, while many classical theories in commutative algebra and
algebraic geometry have been generalized to the noncommutative
setting via the homological vehicle. The proposal emphasizes the
homological aspects of the subject. The Principal Investigator
studies invariants such as the homological integrals of Hopf
algebras and the Nakayama order of rigid Gorenstein rings, further
develops the theory of dualizing complexes over noncommutative
algebras and spaces, and will try to complete the classification
of quantum projective three-spaces.

Noncommutative algebra in general is a powerful tool in mathematics
and physics. Current research in algebraic geometry, number theory,
string theory and topology require further and deeper understanding
of several classes of noncommutative algebras, such as, quantum
groups, noncommutative Iwasawa algebras and Artin-Schelter regular
algebras. The proposal consists of some outstanding questions in
noncommutative algebra, with an eye on applications to other areas.
The Principal Investigator will communicate and collaborate with
experts in different fields. The project has broader impacts on
research, education, and training graduate and undergraduate students.